Student and Family Care Support for the 21st International Conference on General Relativity and Gravitation to be held at Columbia University in 2016.

The International Society on General Relativity and Gravitation promotes the study of general relativity and gravitation and enables the exchange information within this field for example via organizing the triennial GR conference series. This award supports the organization of the next GR Meeting (GR21) to be held in New York City during the summer of 2016. The GR conference series is the principal international meeting for scientists working in all the areas of relativity and gravitation. Reinforcing existing connections and giving opportunity to the exchange of new ideas and form new connections between GR theorists, experimentalists, data analysts, mathematical and numerical relativists and astrophysicists.

GR21 will have sessions covering topics such as Mathematical and Numerical Relativity, Relativistic Astrophysics, Quantum Gravity and String Theory, Gravitational Wave Science and Cosmology. The award will support the participation of graduate students. Temporary child care costs that directly result from travel to the conference will also be considered for support.